Solar Neutrino Physics: Calibrating and Monitoring Borexino

This grant will fund the development and construction of specialized operational test and calibration sources for liquid scintillation detectors, as well as monitoring methods for scintillator properties at several meter pathlengths. The requirements are geared to match those of large scintillator based neutrino detectors where radiopurity and security against contamination are of paramount importance.

Particular focus is given to developing aspects of a calibration and monitoring scheme for the Borexino solar neutrino detector, whose principle purpose is to measure the solar Be-7 neutrino flux. The primary avenue being pursued is an internal, encapsulated, radioactive source. The program is integrated with other calibration efforts of the Borexino collaboration.